Experimental and Theoretical Study of Anisotrophy and Fabric in Granular Materials

Coordinated theoretical and experimental research will be performed on the microstructure in granular materials and the interrelationships of microstructure to the overall constitutive behavior will be investigated. This research will identify and establish stress-fabric relationships; characterize fabric changes associated with stress rates; and develop appropriate constitutive relations.